Integrating The Carbon And Water Cycles Within An Ecosystem Esthetic Approach To Landscapes

Stroud Water Research Center (SWRC) will partner with Longwood Gardens (LG) to develop educational materials that help visitors understand the links between the hydrologic and carbon cycles. The goal is to demonstrate how landscape aesthetics can influence land-use decisions, and to offer carbon-neutral methods the public and others can employ to reduce the impact of storm runoff. The intended audience is primarily adults among the 800,000 annual visitors to the Gardens who are landowners as well as professionals such as engineers, regional planners, landscape architects, developers and municipal officials. This project will also communicate research to public audiences through SWRC and LG websites.